The First Billion Years: a Petascale Universe of Galaxies and Quasars

The Hubble Deep/Ultra Deep fields are iconic, and almost certainly the
most studied space telescope observations. Upcoming observations from an enormous range of
current and planned instruments, from the successor to Hubble, The James Webb Telescope, to
the Large Synoptic Survey Telescope (LSST), to the WFIRST Satellite will also have the
opportunity to reach galaxies and black holes at the same extreme magnitudes or deeper, but
over unprecedentedly wide fields. This will open up the study of the highest redshift galaxies
and quasars to the type of statistical studies that have made modern cosmology a precision
science. This project aims to compute theoretical predictions to make contact with current
and upcoming observations of the high-redshift universe using the Blue Waters supercomputer.

The project will extend the BlueTides simulation, with an unprecedented
volume and resolution, to cover the evolution of the first billion years of cosmic history.
The goal is to significantly increase the scientific impact of this calculation to the community.
Importantly, the project will attempt to make contact
with observations of quasars, which have not been discovered at redshift greater than 7 (while
the simulation now has run to redshift equal 8). In addition the project will be using BlueTides as
a path-finder for developing methods/calculations for future cosmological hydrodynamical simulations
of galaxy formation with volumes and resolutions suitable for creating mocks for next generation
surveys. The impact of the proposed work will extend way beyond BlueTides. Large hydrodynamical simulations
will be more and more useful in all stages of major observational projects in astrophysics
and cosmology. For example, a simulation that covers a significant fraction of the entire
observable universe with BlueTides resolution and runs to the present day (an epoch which
is fully dominated by the hydrodynamic computations) will be needed for LSST.

The project will establish a theoretical framework for understanding the role of galaxies
in the evolution of the universe at high redshifts. Different communities
of scientists are interested in the behavior history of quasars and galaxy assembly, including
cosmologists, the galaxy evolution community and high energy astrophysicists, so the results
would have a wide impact across many different scientific communities.

Additionally, the image and catalog generation, and
database techniques developed by the project will
strengthen the project already on-going synergistic activities with computer science, machine learning
and statistics. Furthermore, the project will have a strong education component by involving undergraduate
and graduate students in this research. Finally, the project propose to perform outreach using
the visualization and interactive Gigapan software.